Team Based Design: Collaboration Across Time and Space

This award provides funding for a three-year, Combined Research-Curriculum Development (CRCD) program, entitled, "Team Based Design: Collaboration Across Time and Space," at Carnegie Mellon University, under the direction of Dr. Daniel P. Siewiorek. The goal of this project is to facilitate computer-based collaborative learning in project-based design courses by developing collaboration tools for mobile computers.